SIMD/MIMD Parallel Computing: Computational Theory, Scientific Applications and Systems Research

This proposal supports the acquisition of a parallel computer capable of operating in both Single Instruction, Multiple Data mode and Multiple Instruction, Multiple Data mode. The computer will be used to support research in operating systems, scientific computing, parallel algorithms, VLSI design, and logic programming. Collaborations with other departments, particularly with computational physics and chemistry, will also be enabled by the acquisition of this computer.